Development and Deployment of Seafloor Tiltmeters

The principal investigators have developed short and long baseline tiltmeters through prior funding. Short baseline instrument performance has been documented in about ten ocean floor deployments at drift rates on the order on one microradian per day and sensitivity of 0.3 microradian. Initial laboratory tests of the long baseline instrument indicate similar sensitivities are reduced drift rates. The development and testing of these instruments will continue. Engineering tasks included the extension of bottom time, analysis of ground coupling and deployment characteristics, development of short baseline leveling table for including in the long baseline instrument, and fine tuning the instruments in response to field tests.